National Chautauqua Workshop Program

The Chautauqua Program is providing an annual series of workshops in which scholars at the frontiers of various sciences and engineering meet intensively for several days with undergraduate college science and engineering faculty. These workshops are providing an opportunity for invited scholars to communicate new knowledge, concepts, and techniques directly to college faculty in ways which are immediately beneficial to their teaching. The primary aim is to enable undergraduate faculty in the sciences and engineering to keep their teaching current and relevant. The program is national in scope and is benefiting large numbers of undergraduate faculty (1900 participants in the first year, 2125 in the second year, and 2,375 in the third year). This national program is helping in attracting and maintaining an adequate supply of graduates in science, mathematics and engineering. The participants and the various universities involved in the program are funding the majority of the costs of the program. NSF is providing decreasing funds over the three year period to cover recruitment, development, and the Advisory Committee.